Precision Positronium Decay Rate Measurements

This project will permit the Principal Investigator and one graduate student to participate in experiments at the University of Michigan at Ann Arbor, investigating the properties of "positronium", a molecule consisting of one electron and one positron (positively charged electron).//